El Paso Urban Systemic Program

The El Paso Urban Systemic Program (EPUSP)-a three-district collaboration, including El Paso, Ysleta, and Socorro Independent School Districts-is requesting support for moving its previous Urban Systemic Initiative (USI0 Program accomplishments to the next level in order to complete the transformation of K-12 mathematics and science teaching and learning. Consistent with its established goals, objectives, and benchmarks, EPUSP has described the USP Core K-12 Program and Implementation Process in terms of the following seven key elements: (1) Scale-up and intensify implementation of high-quality curriculum, instruction, assessment, and related professional development by reconfiguring the system of support to schools to ensure that more schools are at full implementation; (2) Build school and district organizational capacity by providing a comprehensive professional development program to school principals, assistant principals, deans of instructions, and counselors; (3) Fully align and implement district policies to USP goals by developing mechanisms to ensure that policies are adequately implemented and establishing additional policies; (4) Ensure parent and broad community involvement via the development of parent centers, monthly sessions with business and civic leaders, and enhancing the capability of museums; (5) Strengthen the research agenda to inform efforts aimed at the improvement of classroom practices and student performance; (6) Align K-16 mathematics and science courses to ensure a seamless set of content and learning experiences leading to student success in college science and mathematics; and (7) Increase and enhance mathematics and science teacher workforce to develop an exemplary teacher education program.